Particle Aggregation During Electrophoretic Deposition

CTS-9814064
J. Anderson and Y. Solmentsev
Carnegie Mellon University

It is proposed to investigate electrophoretic deposition of particles as a selfassembling coating approach on a flat surface. The proposed model will include a pair of hydrodynamic interaction. Video experiments will be conducted to verify the model, obtain data for multiparticle aggregation and study the differences between direct current and alternating current in the dynamics of selfassembly process. The authors suggests that hydrodynamical forces acting at particle scale play an important role on selfassembling.

If successful, the proposed selfassembling process of particles on a surface may lead to high quality single or multiple layer particle coatings for electronic and optical applications, as well as improved understanding of the dynamics of charged colloidal particles deposited on electrically polarized surfaces.